U.S. - Mexico Collaborative Research: Activation of C-C Bonds in Nitriles with Transition Metals

0102217
Jones

This Americas Program award will provide support for cooperative research between Dr. William D. Jones of the University of Rochester and Dr. Juventino J. Garcia Alejandre of the Universidad Nacional Autonoma de Mexico to do a two-year study of new methods for the cleavage of carbon-carbon bonds using transition metal complexes. A portion of this support is being provided by NSF's Inorganic, Bioinorganic and Organometallic Program.

The goal of this project is to discover new compounds that can cleavage carbon-carbon bonds in a variety of aromatic and aliphatic molecules. The project will benefit from the complementary expertise of the collaborators, with the U.S. researchers providing the necessary equipment to analyze and characterize the compounds, and the Mexican researchers providing their substantial synthetic capabilities and reaction product characterization. The cleavage of carbon-carbon bonds by transition metal compounds is one of the greatest challenges to organometallic chemists. Only a few examples of this difficult reaction have been reported to date. Consequently, this project has the potential to increase our understanding of these important chemical processes.
***